Laser Processing and Characterization of Diamond and Boron Nitride Films and Related Semiconductor and Superconductor Structures

This grant supports research by Dr. Jagannadham Kasichainula and co-workers at North Carolina State University which deals with laser processing and characterization of diamond and boron nitride films, and related semiconductor and superconductor structures. Diamond thin films have been synthesized using plasma-assisted and hot filament-assisted chemical vapor deposition (CVD) methods. Laser-assisted HFCVD has been used to remove graphitic phase codeposited with diamond by etching with pulsed laser irradiation. Single chamber in situ processing techniques have also been developed with which multiple layers can be deposited sequentially via laser ablation. These methods will now be applied to diamond deposition on such surfaces as SiC and YBa2Cu3O7 high-Tc superconducting thin films, and to formation of laser-assisted ohmic contacts on diamond films. These films will be characterized by ultrahigh resolution and analytical transmission electron microscopy techniques. To determine atomic structure of defects and interfaces, a three-step iterative procedure will be employed, involving atomic structure calculations, image simulation, and comparison between simulated and experimental images. Samples will be extensively characterized by optical techniques such as Raman spectroscopy, and correlations between microstructure, microhardness, and electrical conductivity will be measured. %%% This award is in the Electronic Materials Program of the Division of Materials Research. The research supported is directed at synthesis and characterization of thin films of diamond, boron nitride, and depositions of diamond and boron nitride on semi- and superconductor surfaces. This research is of importance because the unique mechanical, electrical, optical, thermal, and chemical properties of diamond and its boron nitride relative make them ideal materials for applications as diverse as wear-resistant coatings and advanced semiconductors. For polycrystalline films, key current research issues are those of microstructure control in such areas as grain size and defects. Control of these properties in thin film fabrication is critical to performance.